Group Travel Grant for Young U.S. Scientists to Attend the XXth International Conference on the Physics of Electronic and Atomic Collisions (ICPEAC); Vienna, Austria; July 1997

This grant is for support of students and young researchers to attend the 1997 XX International Conference on the Physics of Electronic and Atomic Collisions to be held in Vienna, Austria in July, 1997.